CISE Research Instrumentation: High-Performance System Prototyping and Testing

9422087 Nakajima This award is to purchase a VLSI tester which will be dedicated to support research in computer and information science and engineering. The equipment will be used for several research projects, including in particular: High-frequency Digital and Analog Electronic and Optoelectronic Integrated Circuits, Prototyping and Testing Integrated Circuits for Biological Applications, Minimizing the Cost of Production Testing of Analog Integrated Circuits, Prototyping and Testing of High-Performance VLSI Signal/Image Processors, and Prototyping and Testing of Application-Specific RISC Processors and Concentrator Switches. ***